Analysis of J-holomorphic Curves

Abstract

Proposal: DMS-9803554
Principal Investigator: Thomas Parker

This project involves analytic aspects of the theory of pseudo-
holomorphic curves. The aim is to develop effective methods for
computing Gromov-Witten invariants of symplectic manifolds and
enumerative invariants of algebraic manifolds. The main thrust is a
continuing project with E. Ionel on a gluing formula for Gromov
invariants under the operation of `symplectic connect sum'. The idea
is to collapse the connect sum to a singular manifold, keeping track
of the holomorphic curves along the way. Parker and Ionel have
already obtained a gluing formula in special cases; these imply the
well-known recent formula of Caporaso-Harris. A general gluing
formula should be an effective new tool for computing Gromov and
enumerative invariants. A second part of the project seeks to for
answer the following question. Suppose C is curve that is
J-holomorphic for some non-generic J. If one perturbs J to a nearby
generic J', how many J'-holomorphic curves are there close to C?
Several well-known problems in enumerative geometry, some solved, some
unsolved, reduce to this problem. Parker and Ionel have an approach
based on the `Taubes obstruction bundle' . The last part of the
project suggests using modified Gromov invariants to obtain invariants
that count curves which exist only for special classes of almost
complex structures.

One of the most basic problems in mathematics is to determine the
solutions of a system of polynomial equations, and an important first
step toward that goal is to determine the NUMBER of solutions. There
is an explicit formula for the number of simultaneous solutions of a
set of n polynomials in n variables. One can then ask for the number
of solutions for n polynomials in n-1 variables. In this case there
is a free parameter, so the locus of solutions will be a union of
curves. How many? This question has been systematically studied for
100 years, but only a few special cases were solved. Then, around
1990, it was realized that these problems can be translated into
symplectic geometry, and then tackeled using the powerful machinery of
mathematical gauge theory. (Gauge theory, originally part of physics,
has been the focus of many very fruitful interactions between
mathematicians and physicists over the past twenty years; it includes
Yang-Mills and Seiberg-Witten theory, and String theory). This
`Gromov invariant' approach led quickly to formulas answering some of
the original enumerative problems, and there are clear indications
that there are more to be discovered. This project is aimed toward
further developing the symplectic gauge theory in order to produce
additional general formulas, and to meld these formulas into a
coherent theory.